SCI WORKSHOP: PKI Coordination Workshops for Higher Education and the Federal Government; June 16, 2004; Washington, DC

This proposal seeks funding to continue a series of quarterly workshops starting in June 2004 focused on coordination of PKI infrastructures and bridge certificate authorities among higher education and federal government. Federal agency participation includes DOE, Department of Education, NIH, GSA, NIST, and NASA. A host of institutions with existing or developing PKI infrastructures, and Internet2, will also participate.